Workshop on Modeling Human Error in Structural Design and Construction

A 3-day workshop will be held in June l986 at the University of Michigan, the workshop will bring together 35 university researchers and structural engineers to develop the strategy for the approach to human errors in structural design and construction. The workshop has three objectives: (l) to update the status of research on human errors to identify the most effective approach for the near future; (2) to identify, in particular, the promise and difficulties of the scenario approach; and (3) to determine the degree of background preparation necessary for effective improvement of structural reliability in the long range, i.e., optimal control of the process of structural production.